The Nature of the Stretched Dihydrogen Ligand and Other Things

This award by the Chemistry Division supports three studies involving the preparation and characterization of some organometallic systems with unusual bonding. The projects are: characterization of the nonclassical dihydrogen ligand in Rhenium coordination compounds, synthesis and characterization of compounds of quadruply bonded dimolybdenum containing phthalocyanine or dendrimer ligands and a new higher yielding synthesis for MoW(NMe2)6.

This project will contribute to knowledge of the coordination chemistry of the subject ligands.